Geometric Model Theory

Abstract

Award: DMS-0301771
Principal Investigator: Thomas W. Scanlon

These projects study the connections between model theory and
geometry. In this context, model theory includes the search for
axiomatizations and quantifier elimination results for concrete
structures and the development of general stability and dimension
theories. The geometric problems to be studied arise in
algebraic, complex analytic, rigid analytic, and differential
algebraic geometry. Specific projects include the extension of
the model theory of compact complex manifolds to nonstandard
analytic spaces and rigid analytic spaces. Some of this work
investigates the extent to which Kaehler manifolds are free from
model theoretic pathologies. In diophantine geometry new
uniformity and finiteness principles are being sought as
reflections of similar results for enriched fields. In
particular, a program based on the model theory of separably
closed fields aims to resolve a function field variant of Denis'
analogue of the Mordell-Lang conjecture for Drinfeld modules.
The fine structure of definable sets over D-fields will be
investigated, aiming to extend relative completeness and
quantifier elimination theorems to valued D-fields with richer
analytic structure and to produce effective versions of
quantifier elimination theorems in this setting. Differential
jet spaces and related constructions will be used to uncover the
combinatorial geometry of regular types in partial differential
fields. Abstract Euler characteristics and Grothendieck rings of
first-order structure will be investigated.

The idea of the branch of logic called model theory is, roughly,
that if we know all of the simply-stated truths about an object
then either we should know how to recognize that object uniquely,
or anything else sharing the same collection of first-order
properties should be revealing like the original and might
sometimes be easier to study. To be more precise, model theory
studies mathematical structures by considering the first-order
sentences true in those structures, and the family of alternate
structures that also satisfy all of those first-order sentences.
(Sentences in logic are built out of a small repertoire of
elements and constructions. "First-order" refers to the number
of quantifiers in a sentence, a measure of complexity.) A model
for the algorithms and bounds sought in some of these projects is
long division: if you are given two whole numbers to divide by
hand then you can estimate the number of steps required by long
division by comparing the number of digits in the decimal
expansions of the dividend and divisor.